Analytical and Experimental Investigation of Force Controlled Off-Road Wheeled Vehicles

This research project deals with an active control of offroad wheeled vehicles. An effective control of the force distribution in these systems, particularly the control of all the wheel-terrain contact forces, is central to achieving acceptable control of the motion and suspension degrees of freedom of these vehicles. On uneven terrain, wheeled vehicles possess kinematic and quasi-static force distribution characteristics that are fundamentally different from those that vehicles possess on even terrain. If the vehicle-terrain combination are instantaneously treated as a spatial linkage with closed kinematic loops, an even terrain leads to an inherent symmetry in these virtual spatial linkeage. This symmetry leads to singularities in kinematic and static force distribution behavior of these vehicles. The literature on conventional vehicles for even surface operation does not address these singularities since these vehicles are nominally studied as planar motion machines with small perturbations in their suspension degrees of freedom. Motion and suspension are generally treated as decoupled problems. On uneven terrain, the symmetry and hence the singularities are not always present. Using a kinematic-geometric framework based on screw system theory, an understanding of the mobility (number of degrees of freedom) and the motion potential (available motion) of wheeled vehicles on uneven terrain is developed. This framework can also be used to study the force distribution characteristics of these vehicles by extending the rate kinematics/static force analysis duality that has been observed in classical problems in robotics to these kinds of spatial mechanisms. The kinematic-geometric framework is particularly suited for studying active off-road vehicles since their system designs typically do not include intentional passive compliances (lumped or distributed). An extension of the kinematic-geometric approach to rigid body dynamics of complex systems, known as spatial vector mechanics is used to study the dynamic behavior of these offroad vehicles. The project includes both the `analytical/numerical' and `experimental' aspects. The analytical/ numerical objectives include the development of a Spatial Vector Mechanics (SVM) framework that combines Screw System Theory and Newrton-Euler Dynamics using Spatial Vector Notation. The SVM framework allows the investigation in an integrated manner; to develop general kinematic synthesis techniques for active off-road wheeled vehicles; to develop a modular dynamic simulator for performing numerical studies of two classes of wheeled vehicles; and to develop system-level force control strategies for active off road vehicles. The experimental task include off-road experiments with an experimental prototype known as the Force controlled Tricycle (FCT). The FCT is representative of a class of active vehicles that include two-wheel axles that can actively vary their axle lengths.